Applications of Modular Invariance in Geometry and Topology

9803234
Liu
Modular forms and modular invariance have recently appeared in many
areas of geometry and topology. For examples, they showed up in the
index theory of loop space; in the computation of Donaldson and
Seiberg-Witten invariants; in the counting problems of rational curves
in mirror symmetry. They have also appeared in mathematical physics
and in the construction of topological invariants of 3-manifolds. The
investigator considers it very important to study these new phenomena
systematically and to find further applications of modular forms and
modular invariance in geometry and topology. Modular invariance
should be the key to the understanding of the geometry and topology of
infinite dimensional manifolds, such as loop spaces. The investigator
hopes to combine modular invariance and many classical techniques in
geometry and topology to solve several problems in geometry and
topology related to modular forms.
Modular invariance, which is called the symmetry of nature by Edward
Witten (I.A.S.), quite often arises from mathematical physics, in
particular, from string theory. It is interesting to notice that the
most beautiful mathematical objects in string theory always have the
property of modular invariance. While modular invariance already has
some very interesting applications in geometry and topology, a deep
and geometric understanding may tell us that modular invariance is
also the symmetry between mathematics and physics.
***